Collaborative Research: Phylogeny, Behavior, and Silk Evolution of Webspinners (Embioptera), a Little-Known Insect Order

Webspinners (order Embioptera) are a curious group of insects found
mainly in tropical forests. Their biology is among the most poorly studied
of any insect group even though webspinners are known to exhibit a range of
unique biological phenomena. They are the only insects that spin silk from
glands in their front legs, and they do so as both immatures and adults.
They exhibit maternal care and often live in groups where they use silk to
construct large and sometimes intricate galleries in which they live and
rear their young. The types of galleries and behaviors associated with silk
spinning vary considerably throughout the group, and nothing is known about
the composition of silk proteins and the genetic basis for silk production.
Although there are only about 400 species of webspinners known, estimates
suggest there may be more than 1500 new species already in collections but
not formally described and many more in Nature awaiting discovery.
Webspinner classification is in a poor state never having been updated using
a modern, phylogenetic basis. A collaborative research and training project
between laboratories at three universities will assemble a group of
researchers with the expertise to investigate the phylogeny, behavioral
ecology and classification of the Embioptera. At Brigham Young University,
phylogenetic analyses will be conducted using molecular and morphological
data and will form the basis of an improved natural classification of the
group. At Santa Clara University, biological aspects of the insects such as
colony construction, maternal care and habitat requirements will be examined
within a phylogenetic context by tracing these features through the
phylogeny. Finally, at the University of California, Riverside, the genetic
basis for silk production will be examined by discovering the DNA sequences
that code for silk in several species, and the variation in these silk genes
will be investigated within the context of webspinner phylogeny. Results
will be disseminated in scientific journals and through applications of
modern, digital technology including digital image galleries, digital
reproductions of literature, digital matrix-based identification keys, etc.
Museum holdings of webspinners will be enhanced by curation and new material
from fieldwork.
This collaborative project represents the first comprehensive
investigation of the phylogeny and biology of webspinners ever done. Since
embiids occur in often fragile ecosystems, better knowledge of the group
will likely have important relevance to conservation of these habitats.
Also, this work will foster multidisciplinary collaboration between
biologists in disparate fields and facilitate the training of postdoctoral
fellows and students in multidisciplinary research. The research will
involve undergraduates extensively to give them a firm background in
science, including proper research methods and ethics. When the project
objectives are met, a historically little-known insect group will be more
accessible to everyone through the published results, and a positive
long-term impact on the scientific community will occur because of the broad
cross-disciplinary training of researchers at several academic levels.